U.S.-Germany Cooperative Research on Word and Unification Problems and Automated Reasoning

9401087 Narendran This award supports Paliath Narendran, Deepak Kapur and two graduate students of the University of Albany, to interact with Professors Freidrich Otto of the University of Kassel and Klaus Madlener and Jurgen Avenhaus of the Computer Science Department of the University of Kaiserslautern. All of them are widely recognized for their outstanding contributions to various areas among their mutual interests, which include symbolic computation, theorem proving, unification and algebraic issues related to term rewriting. The U.S. participants are particularly strong in automated deduction and symbolic computation, and they have been active in both theoretical and practical aspects of these fields. Their interests and expertise are well matched and complemented by their highly regarded German colleagues. This work has direct relevance to theorem proving and constraint solving, which are emerging as crucial technologies in future programming systems. Therefore the results of this collaboration among these innovative mathematicians and computer scientists are very likely to be theoretical advances that will have practical value in designing and using programming languages and symbolic computation systems. The involvement of the two graduate students will be a valuable experience at an early stage in their research careers. ***